Graphics-Oriented Programming Environments for Highly Parallel Computation

Programming highly parallel computers is an extremely complex task which will necessitate the development of appropriate sets of support tools, including graphics-oriented programming environments for MIMD, ensemble machines. We have already implemented a rudimentary environment built as the front end to a multiprocessor simulator. This environment will serve as the testbed for our research in two areas: high-level languages and parallel debugging. In the area of high-level languages, we investigate specifications of graph grammar, provide mapping assistance through graph-grammar based mechanisms, and design heuristics for aesthetic graph layout and placement. In the area of parallel debugging, we would determine which kinds of information is most useful to debugging of parallel programs.